Environmental and Genetic Sex Determination in Fishes

The objective of this project is to show how the seasonal effects of temperature on sex ratio are adaptive. In a marine fish, the Atlantic silverside (Menidia), thermal effects on sex ratio result in females being produced earlier in the year than males. Females tend to be larger than males at the end of the summer growing season, presumably because they have experienced a longer growing season by virtue of earlier birth. Large size appears to be more important to reproductive success in female than male silversides. Dr. Conover will examine the related benefits of large size and longer growing period. His approach is to compare the effects of length of the growing season on female and male body sizes among latitudinal populations of silversides that experience very different growing season durations. In these populations the level of thermal control on sex ratio is also known to vary. He will also measure how populations alter growth rate in an attempt to compensate for the differences in length of the growing season that occur with latitude. The results of this study will greatly enhance our knowledge of how environmental sex determination evolves. It will also help us to understand how populations of a given species compensate for differences in length of the growing season. This information is important to fundamental ecological research. But it will also be useful in fish culture, where the ability to environmentally manipulate the sex ratio, or to select stocks from nature with the highest growth rate, would be highly advantageous.